Model Proj: Women in Engineering, Science and Technology (W.E.S.T.)

The Women in Engineering, Science and Technology Program (WEST) at the New Jersey Institute of Technology is increasing the number of women who transfer to baccalaureate programs after receiving the AS degrees from New Jersey community colleges. WEST has discovered that investing in faculty mentors of math-able women is a long-term solution to the gender pipeline problem. It is currently developing a model faculty mentoring program for six community colleges. In addition, WEST is presenting four career days for 400 students, and presenting a state-wide conference for 100 community college faculty on the topic of "Gender, Engineering, Science and Technology." This conference will be videotaped and broadcast nationally on the Community College Satellite Network and regionally on the Cable Television Network as a program entitled "She Wants To Be An Engineer."